Community School District II - Summary of the District Eleven Weather Study Program (DEWS)

"Community School District II-Summary of the District Eleven Weather Study Program (DEWS)" Under this award, the New York Community School District 11, with the technical assistance of the New York City Board of Education television station WNYE-TV, will produce a thirty minute television program that will provide a visual summary of the District Eleven Weather Study Program (DEWS).